Calderon-Zygmund Operators on Sobolev-Besov Spaces and Boundary Problems with Minimal Smoothness Assumptions

Following A.P. Calderon's program (sketched in his Helsinki ICM
address in 1978), many basic boundary value problems in physics
and engineering can be attacked by starting with a representation
of the solution in the form of a potential operator, and then
reducing matters to analyzing the functional analytic properties
of a system of pseudodifferential operators on the boundary.
The new phenomenon, occurring when non-smooth structures are
present, is that these boundary operators belong to a larger
class, consisting of singular integral operators. The lack of
a symbolic calculus in this context makes the study of such
operators fundamentally harder, particularly when one has to
address such delicate issues like Fredholmness and invertibility.
While in the intervening years these ideas have undergone a
dramatic development, much remains to be done.

The main goal of the current proposal is to investigate the
specific nature of the singular integral operators arising in
connection with basic problems in mathematical physics, such as
Maxwell's equations, vector Poisson problems, Hodge
decompositions, and Stokes's system of hydrodynamics, in light
of recent advances in the fields of harmonic analysis and
partial differential equations. For maximum applicability, it
is important to consider these problems in the context of
general Sobolev-Besov spaces and when the underlying
structures are minimally smooth.